Scientific Computing Research in Mathematical Sciences

9508284 Alexiades The Department of Mathematics at the University of Tennessee, Knoxville, will acquire high performance computing equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular: a) Solidification of multicomponent melts, b) Computation in micromechanics, c) Development of adaptive codes for nonlinear evolution equations, and d) Classification of knots and links.